Mathematical Sciences: Problems in Geometry

Karen Uhlenbeck will continue her research in three topics. The first is the study of the harmonic map equations from two dimensional base space into Lie groups and symmetric spaces. The second involves investigation of the geometric meaning of supersymmetric field theory. The final topic concerns an investigation of the solution space of the Hermitian Yang-Mills equations on high dimensional complex manifolds. This will hopefully involve the discovery of more interactions between Yang-Mills theory and algebraic geometry. Varghese Mathai plans to use the superconnection formalism and superdeterminants in order to prove the Riemann-Roch theorem without denominators for embeddings. Jose Escobar will continue studying the problem of conformally deforming a compact Riemannian manifold with boundary to have constant scalar curvature and minimal boundary. All the issues to be studied by these investigators are deep and basic ones, in many instances they are interdisciplinary in nature and promise to have a broad impact.